Gauge Theory and Low Dimensional Topology

The main theme of this project is the study of knots, three dimensional
manifolds and smooth 4-manifolds by using Heegaard Floer homology,
gauge theory and symplectic geometry. Potential applications would
include the construction of new invariants for knots and links,
better understanding of those knots that admit lens space surgeries and
and the construction of new exotic smooth structures on 4-manifolds.
The PI also proposes to study the structure of the Floer
homology invariants and their relationship with smooth 4-manifold
invariants.

The proposal studies the relationship between Seiberg-Witten and Heegaard
Floer homologies and their applications.
While the latter theory uses topological tools and
symplectic geometry, the former uses the Seiberg-Witten equations that
are related to gauge theory and mathematical physics. Progress in this
direction should lead to a better understanding of connections between
low dimensional topology and gauge theory.